AIM4GREENS: Artificial Intelligence and Modeling for Gene REgulatory Engineering of Networks from Single-Cell Plant Atlases

Understanding how plants regulate genes across developmental stages and in response to stress is essential for developing crops that can better withstand agricultural challenges and improve productivity and food security. This project, AIM4GREENS (Artificial Intelligence and Modeling for Gene REgulatory Engineering of Networks from Single-Cell Plant Atlases), will develop new biotechnology and artificial intelligence (AI) approaches to reveal how plant cells regulate gene activity. By combining cutting-edge AI with advanced single-cell genomics and spatial transcriptomics technologies, the project will create new computational methods that enable researchers to identify the molecular mechanisms controlling plant development and stress responses with greater accuracy and confidence. The resulting open-source computational tools, datasets, and educational resources will support the broader scientific community, accelerate biotechnology research for crop improvement, and help train the next generation of scientists at the intersection of AI, genomics, and plant biology. Through interdisciplinary research and outreach programs that engage undergraduate students, graduate students, and high school students from South Carolina, including rural communities, the project advances the progress of science while contributing to the nation's agricultural prosperity, economic competitiveness, and an AI-enabled biotechnology workforce.

The project will develop an interpretable AI framework for reconstructing mechanistically resolved gene regulatory networks from single-cell multi-omic plant datasets. Rather than predicting transcription factor (TF) and gene relationships alone, the framework will infer cell-type-specific TF, cis-regulatory element (CRE), and gene regulatory triplets that directly connect transcriptional regulators, regulatory DNA sequences, and target genes. The research integrates single-nucleus RNA sequencing and chromatin accessibility data from Arabidopsis subjected to abiotic and biotic stresses to identify regulatory programs governing plant adaptation. Methodological innovations include multi-instance learning to resolve regulatory element assignment, positive-unlabeled learning to estimate calibrated confidence for inferred interactions, and generative AI approaches, including Flow Matching and Generative Flow Networks, to model dynamic, uncertainty-aware regulatory networks. Predicted regulatory interactions will be benchmarked against existing methods and validated using computational analyses, genetic perturbation experiments, single-cell transcriptomics, and spatial transcriptomics. The resulting AI-based computational framework will provide a rigorous, interpretable, and experimentally testable foundation for gene regulatory network inference that is broadly applicable across plant biotechnology and functional genomics.